Extensions of Economic Growth Analysis: Human Capital and Computers

This is a Career Advancement Award supported under the Research Opportunities for Women Program and the Economics Program. The broad purpose of this type of award is to enable promising women scholars to increase their research productivity. With this award, the investigator will pursue three areas of research. The first will involve the refinement of measures of labor quality, to more accurately reflect the impact of changes in the composition of the labor force, thereby improving estimates of economic growth. The second, a related area of research, will also be directed at improving the measurement of economic growth by including the valuation of nonmarket activities that takes into account the loss in lifetime earnings due to interruptions of labor force activity for child rearing. The third area of research will focus on analyzing the factors that give rise to a comparative advantage in computer-hardware manufacturing. Since computers are a vital component in the acceleration of technical progress, it is important to understand what gives rise to comparative advantage in their manufacture.